I/UCRC for Effect of Water in Soil Matrices on Heat TransferRates in Contaminated Soil Remediation

This Research Opportunity Award funds a project "Effect of Water Soil Matrices on Heat Transfer Rates in Contaminated Soil Remediation" at Howard University in support of New Jersey Institute of Technology's Industry/University Cooperative Research Center for Hazardous Substance Management. This two year project is reporting to the Center's Industry Advisory Board. The project is studying the thermal desorption with afterburner destruction in the incineration of soils to develop a working model for soil decontamination. The model is expected to predict the conditions for applicability of thermal treatment to site clean up for the National Site Remediation Program. The Principal Investigators are competent and have the facilities to perform the research. The Program Manager recommends Howard University be awarded $99,976 for two (2) years.